Mathematical Objects for Display and Computation

TCI software will develop transformations between the objects of a scientific word processor (Scientific Word) and the objects of symbolic manipulation systems like Mathematica and Maple. The PI's firm, TCI software, has established credibility in this area, and an award as a Phase 2 SBIR grantee is highly recommended.